Group proposal in topology

DMS-0204615
J. Peter May

This project deals with research in a wide range of topics
in topology, geometry, and related areas of mathematics.
May studies a variety of categorical and homotopical
structures in stable homotopy theory, equivariant
algebraic topology, and other fields. Although his current
work is primarily foundational, his students and collaborators,
among others, make extensive calculational applications of it.
He and his collaborators have recently unified the foundations
of stable homotopy theory by proving that all of the
new highly structured categories of spectra are Quillen
equivalent model categories, via structure-preserving functors.
The analogous, and deeper, unification of the foundations of equivariant stable homotopy has also been carried out. Within
algebraic topology, May has been working on various other
projects in equivariant and non-equivariant homotopy theory.
He has also been working on various topics that have roots in
algebraic topology but are of a more general nature.
In particular, he has recently obtained a new definition
of enriched weak $n$-categories and has spearheaded a very
large scale unification project in higher category theory.
Weinberger studies various areas of geometric topology and
differential geometry. He has a longstanding interest
in transformation groups, especially surgery theory on
manifolds with group actions. In particular, he studies
problems concerned with removing the ``gap hypothesis''
that obstructs the direct generalization of the
nonequivariant theory. Weinberger also has a longstanding
interest in the Novikov, Borel, and Baum-Connes conjectures,
and he has made recent progress on them. In a new direction,
Weinberger has been engaged in a large scale collaboration
with Nabutovsky that concerns applications of logic to
Riemannian variational problems and to the large scale
geometry of moduli spaces. Some of his recent results defy
easy characterization. For one example, he has applied an
old theorem of Browder about finite H-spaces to obtain a
theorem about the "social choice problem". For another,
in recent work with Farb he has shown that "hidden symmetries"
on a locally symmetric manifold force it to be arithmetic.

Besides May, the algebraic topology group at Chicago
includes four nontenured faculty and eight graduate
students. The geometry group includes Weinberger and
four other tenured faculty, six nontenured faculty, and
fifteen graduate students. There is considerable interaction
between these groups, and between them and other groups
at Chicago, such as the geometric Langlands group and
the algebraic geometry group. The research funded by this
grant is part of a web of research projects in progress at
the University of Chicago.